TRAVEL SUPPORT FOR STUDENTS TO ATTEND MEDGEO 2013 IN ARLINGTON, VIRGINIA AUGUST 25-29, 2013

This is a request to support travel and participation by 18 graduate students and early career scientists in the International Medical Geology Association (IMGA) biennial international conference, MEDGEO 2013 (Conference) in Arlington VA, during August 25-29, 2013. The Conference theme is "The Natural Environment and Health: Hidden Dangers, Unlimited Opportunities." This conference is an international, biennial gathering of geoscientists and health professionals and their students held to share information on advances in medical geology. The specialized field of the Conference, medical geology, is multi-disciplinary, applying geoscience principles to solve global public health problems.

The students supported will be presenting a research paper at the conference. The conference represents a unique opportunity for students? networking among themselves and with established professionals.